Pseudorandomness, Codes, and Cryptography

This proposal is about pseudorandomness and its relationship with coding
theory and cryptography. A fundamental object in the study of
pseudorandomness is the extractor, introduced by Nisan and the PI. An
extractor is an algorithm which extracts high-quality randomness from a
low-quality random source, using a few auxiliary high-quality random
bits. Recently, the PI and co-authors have discovered interesting
connections between extractors and coding theory. Specifically, they
showed how to use Reed-Muller codes to build good extractors, and how
extractors yield good list decodable codes. While there have been
improvements in these methods, optimal extractors have not been
achieved, and the PI proposes to work towards that goal. The PI also
plans to work on related issues in coding theory.

In addition, the PI plans to work on using low-quality randomness in
cryptography, where less work has been done. Cryptography also
motivates the notion of deterministic extractors, which extract
randomness from low-quality sources without any auxiliary random bits.
While this is impossible for general low-quality sources, it is possible
with more specialized ones. For example, the PI and a student
constructed deterministic extractors for so-called oblivious bit-fixing
sources. This has applications to exposure-resilient cryptography, where
cryptographic primitives are made to work even if large portions of keys
are exposed. The PI proposes to improve previous results and work on
related issues.

Broader Impact

Many scientists use pseudorandom generators in Monte Carlo
simulations,and may get wrong answers without knowing it. Advances in
pseudorandom generators can therefore mean advances in other areas of
science. Advances in cryptography are also important to society, as
computer security becomes more relevant for national security. The
project also has educational benefits: the PI's research is integrated
with his teaching, especially in his mentoring of graduate students and
postdocs.